Chemical Vapor Deposition from the Metal Hexacarbonyls

This award is made under the Advanced Materials and Processing Program in the Chemistry Division in support of the research of Dr. Singmaster-Hernandez. The research will provide an understanding of the microscopic chemical processes leading to both laser-assisted and pyrolytic thin metal film deposition from the Group VI hexacarbonyls. Film composition and morphology will be probed by Scanning Auger Spectroscopy. The chemical vapor deposition process will be coupled with cryogenic matrix isolation of the reactive intermediates. Matrix isolated species will be identified by Fourier Transform Infrared and UV-Visible spectroscopies. Both studies will complement each other and provide additional insight into the mechanisms of film deposition, incorporation of impurities, and possible insights into ways that film impurities can be removed or prevented. %%% A fundamental understanding of the mechanism of thin metal film deposition and the intermediates involved will be of great value to the microelectronics industry.